Solar Maximum Studies at the Millstone Hill Observatory

The Massachusetts Institute of Technology will continue a program of upper atmosphere research using the radar and distributed ground-based instruments that comprise the Millstone Hill Observatory (MHO) in Westford, Massachusetts. The Millstone Hill incoherent scatter radar facility consists of two 2.5-MW UHF transmitters, a fully steerable 46-meter antenna, and a zenith directed 68-meter fixed antenna. The Observatory is situated at 55° latitude, such that its extensive field of view for ionospheric observations encompasses the full extent of mid-latitude, sub-auroral, and auroral features and processes. The radar will be operated for about 1000 hours per year in support of international World Day experiments and community-directed research programs. Radar and system maintenance and minor upgrades will be carried out, along with wide-ranging scientific analysis of the data to support scientific usage. User support will receive major emphasis including efficient access to the observed and analyzed parameters, information, scheduling, and database access on the WWW, community-interaction workshops, and education and outreach activities. The research conducted by the scientific staff of MHO will encompass a broad range of topics involving processes and dynamics of the thermosphere, ionosphere and magnetosphere, as well as investigations of plasma waves and magnetic storm effects. Scientific emphasis will include magnetosphere-ionosphere coupling in the vicinity of the plasmasphere boundary layer, space weather effects and processes over the continental US, ionosphere-thermosphere coupling, and upper atmosphere climatology. Radar and ancillary data from MHO will be deposited in the CEDAR data base at NCAR for community use and will be made available online via the MADRIGAL database. Student and external investigator participation in these research activities, and the inclusion of Millstone Hill Observatory data in external studies will also be supported. MHO team members will continue educational activities through our Research Experiences for Undergraduates and Research Experiences for Teachers participation. The program incorporates community input and outreach activities through workshops at the annual CEDAR and URSI meetings and will encourage and support visiting students and instruments at MHO. Analysis and data distribution techniques developed for use at MHO will continue to be made available for community use and every effort will be made to make these analysis products compatible with the broad user community needs.